Postdoctoral Research Fellowship in Plant Biology

This is an individual award for the Postdoctoral Research Fellowship in Plant Biology. The applicant received her Ph.D. from University of California at Riverside. Her Ph.D. research was in molecular plant pathology of Pseudomonad. She plans to carry out her postdoctoral fellowship research in the laboratory of Dr. Thomas Wolpert at Oregon State University. The proposed research entitled "Immunological/biochemical characterization of victorin binding in oats" will broaden the training of the Fellow into biochemistry and mycology.